Spectroscopy of Ordered Materials

In their program they will use laser spectroscopic methods to study (1) coherence in energy transfer in rare earth solids, (2) incoherent and cooperative transfer processes using time resolved flourescent line narrowing techniques and (3) ballistic propagation of magnons.